Lake-Level Influences on Chironomid-Based Reconstructions of Paleotemperature

This award is for support of a study to determine the influence of lake-level changes on chironomid-based temperature estimates. A transect of cores from within each of two lakes in northern Maine will be examined for evidence of past water levels. Chironomid analysis will be performed on cores from both lakes. Geologic/chronologic evidence of Younger Dryas-age ice readvance in northern Maine will provide the data necessary to apply a well-developed glaciological model to determine the range of temperature and precipitation that could possibly have prevailed during this period. Chironomid estimates of temperature will be reconciled with the temperature range derived from the glaciological model, and the transfer function will also be refined with respect to lake-level. The new chironomid/lake-level transfer function will then be applied to Holocene sediments from the two lakes.